Managerial Innovations in Retailing and Competition

This project develops a theoretical framework for understanding the scope of innovations in retailing with particular attention to competition and the incentives to innovate and explore new service-oriented business practices. The research includes empirical analysis that emphasizes competition between established retailers and the new retail outlets such as warehouse stores. The research comprises both theoretical and empirical analysis of competitive strategies. The theory relies on a game theoretic formulation, with endogenous consumer decisions predicated on information provided by firms. Where information is lacking, consumers have expectations that are fulfilled in equilibrium, i.e., are rational. The model also permits forward buying by consumers. The empirical work consists of studying both firms' strategies and consumer behavior. The firms' strategies include their positioning, pricing, product assortment, service level and advertising. Consumer behavior is with respect to their shopping behavior: choice of store, choice of product, and inventorying. Thus, the empirical analysis is tied to the theoretical work. The data will also match stores and consumers within the same geographic market. The research should prove useful to both researchers and managers. Researches should find the game theoretic foundation for the analysis of retailing useful to build on as they tackle other aspects of retailing, and multi-product firms in general. The empirical analysis will provide insights into how retail innovations affect entrenched firms. Such insights are critical to understanding market transitions, managerial effectiveness, and productivity. Managers should find the results useful in formulating their strategies, and obtaining insights which will prove useful as they enter new markets, for example, internationally.